AGU Chapman Conference on Magnetic Storms; Pasadena, California; February 12-16, 1996

This proposal requests support for travel and other conference expenses for students to attend the Chapman Conference on Magnetic Storms; February 12-16, 1996; Pasadena, California. The emphasis of this meeting is the study of all facets of magnetic storm research, including causative phenomena at the Sun and interplanetary space, magnetospheric processes and dynamics during storms, storm/substorm relationships, ionospheric-thermospheric effects, ground effects, and a session devoted to storm forecasting.***